Physics of Two-Phase Media: Applications to Earth Evolution

Many of the problems central to earth structure and history require a deeper understanding of differentiation in a convecting two-phase (liquid-solid) system. Current research indicates no inconsistency between geophysical arguments favoring extensive early melting of the earth (a deep magma ocean) and geochemical arguments, primarily because differentiation does not begin until the system approaches the solidus (melt fraction 20%). The PI will pursue the issue of the extent to which differentiation can take place at this stage and subsequently, through a comprehensive set of analytical and computer model calculations, and combine these with high pressure geochemical data to test the consequences against current earth structure. //